A vBNS Connection for the University of Wyoming

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in astrophysics, computer science and electrical engineering. Collaborating institutions include the NASA Ames Research Center, Massachusetts Institute of Technology, Arizona State University and University College London.